Interactions between Representation Theory, Quantum Field Theory, Category Theory, and Quantum Information Theory; August 2009, Tyler, TX

This conference is on Interactions between Representation Theory, Quantum Field Theory, Category Theory, Mathematical Physics, and Quantum Information Theory. The conference will bring together experts in the areas of Topology, Hopf Algebras, Quantum Topology, Category Theory, Representation Theory, Mathematical Physics, and Quantum Information Theory. These fields are interrelated and have motivated each others' development.

The conference will be of benefit to American mathematics, mathematical researchers, and quantum computational researchers. Cross-disciplinary interactions are widely recognized for their value in stimulating new ideas and advances and will thus not only increase the knowledge of the participants, but could result in the new invention and new discovery.